CISE Research Infrastructure: Advanced Media-Oriented Systems Research: Ubiquitous Capture, Interpretation, and Access

EIA-9972872
Ramachandran, Umakishore
Ahamad, Mustaque
Atkeson, Christopher G.
Chervenak, Ann
Schwan, Karsten
Georgia Institute of Technology

CISE Research Infrastructure: Advanced Media-Oriented Systems Research: Ubiquitous Capture, Interpretation and Access

Georgia Tech researchers will perform research on systems and application level issues arising from two applications, a virtual classroom and perceptual information spaces. The PI's will perform research addressing capture, interpretation, access and delivery of multiple media streams. At the application level, research will address deducing users expressions (e.g. focus of interest) and emotions; scaling issues to the campus wide level will be explored for the virtual classroom, and the equipment will support a research on perceptual processing. Systems level research will examine QoS methods, shared state, metadata, and storage architecture for multimedia lectures and other objects. Middleware and runtime systems will be developed for inter-cluster and client server computing as well as to handle media streams in a heterogeneous environment.